Symbolic Computation Systems for Young Scholars: Development and Industrial Applications

The Rensselaer Polytechnic Institute will initiate a two-week, residential, Young Scholars project in math and computer science for 25 students in the 11th grade. This project introduces Young Scholars to the ongoing process of computerization of mathematics and selected research applications evolving from these developments. During their summer residency students are taught the use of symbolic computation systems in order to find appropriate algebraic models for realistic applied problems in sub- fields such as cryptography. They also experience the development of such systems (in academe and industry), and examine career options and topical ethics issues in these settings. Returning to their schools with software and remote access to Institute faculty and facilities, the students explore individualized experiences and tutor other students.